The Production of Foreign Proteins from Genetically ModifiedPlant Cells

The objective of this research is to investigate the feasibility of producing model foreign gene products, chloramphenicol acetyltransferase (cat) or -glucuronidase (gus), from genetically modified tobacco cell culture, Nicotiana tabacum. The production of cat or gus enzymes will be monitored in batch, semi-batch, and continuous bio-reactors, and optimum conditions will be determined. The stability of the genetically modified plant cells will be tested in long-term continuous operations. Plant cells can be grown in a liquid solution containing sugar and other ingredients, which may be employed for the production of important plant products, such as pharmaceuticals, flavors, and pigments. The long-term objectives of this proposed research are to genetically engineer plant cells to produce valuable pharmaceutical products and to develop an economically viable, industrial-scale process suitable for production. As a first step, the study will examine the feasibility of producing model protein products from genetically altered plant cell culture in a laboratory-scale fermenter system.